A Multifaceted Approach to Chemical Education

This project is a three year program with components designed to meet the needs of two diverse audiences. Program A, Update and Enrichment, is an eight-week, two summer intensive program for two sets of forty underprepared teachers of chemistry from the western region of the country, including the states of Alaska, Arizona, California, Colorado, Hawaii, Idaho, Montana, New Mexico, Nevada, Oregon, Texas, Utah, Washington, and Wyoming with a major emphasis on the selection of teachers from among underrepresented groups and those whose main teaching responsibilities are for students of those populations. Program B, Research and Instrumentation, is a three-week program for twenty well-prepared chemistry teachers per year to enrich their knowledge base of chemical instrumentation and further develop their leadership skills as they are prepared to disseminate this information to their colleagues. The Update and Enrichment Program will provide in-depth instruction in fundamental concepts of chemistry, experience in the laboratory and in performing demonstrations, the use of computers and the field-testing of the ICE-developed materials on the assessment of laboratory experiments. The participants will be challenged to provide input on their classroom efforts during the academic year between the two summers' workshops. Faculty from the Chemistry Department of the University of California at Berkeley will provide the instructional expertise augmented by leader teachers, both Black and Native Americans, who will provide the support and role models for these participants. The Research and Instrumentation Program emphasizes the frontiers of research areas in chemistry and the application of modern instrumentation. As above, UCB faculty provide the instructional expertise, and all work will be carried out in the labs of the University and at Lawrence Berkeley Lab. Participants will visit other labs, participate in seminars and prepare instructional materials that can be used in chemistry classrooms. Teachers will be encouraged to plan and present programs to other teachers, parents and/or other members of their communities. These teachers will be selected from many applicants across the country. Cost sharing from the University and the participating schools represents 18% of the NSF request.